Evidence for Recent Climate Change and Post-Jurassic Volcanism in Southern Victoria Land

This award supports a project designed to confirm that the East Antarctic ice sheet in the David Glacier area has become thinner in the past 100,000 years and to use rocks deposited by the ice to study the geology of the ice-covered area of East Antarctica. As a secondary objective the project will also collect samples of Jurassic basalt and dolerite in the nunataks exposed in the David Glacier area for a geochemical and isotopic study designed to test the hypothesis that renewed volcanism of hydrothermal alteration of these rocks occurred in post-Jurassic time. The detection of a climate change in the study area will be a significant contribution to current efforts to use climate records from the recent past to predict future climate trends.